Topics in Modern Physics: Curriculum Materials and Inservice Program

Topics in Modern Physics: Curriculum Materials & Inservice Program is a two year project of the Friends of FermiLab Association designed to update high school physics courses in Northeastern Illinois by augmenting the curriculum and improving instruction. A group of Fermilab scientists and four high school physics teachers will develop a teacher resource book on modern physics topics such as particle physics and cosmology. This group will then hold a three week summer workshop for twenty master teachers to include backgound lectures on modern physics and a laboratory to try out classroom materials. A comprehensive physics inservice plan will be developed by the participants and implemented throughout the region in the following academic year.